Ship Operations

97034927 SHAAR The GYRE is a 182' general purpose research vessel constructed in 1973. The ship is owned and operated by Texas A&M University. The vessel is scheduled for 137 days in 1997, of which 30 days are in support of NSF-sponsored programs. The Navy and MMS will use the vessel for 38 days in support of programs for NRL and Minerals Management programs. In addition the vessel will provide 43 days in support State programs and 5 days for private research. The Gyre did not provide support for NSF programs in 1995 or 1996. The GYRE is part of a fleet of ships used by the National Science Foundation in support of marine science research. Most oceanographic projects require highly specialized equipment be permanently installed on the vessel, thus the necessity for specialized ships. The GYRE will operate in the Gulf of Mexico off the southwest coast of the U.S. ***